New Fast Heavy Scintillator Based Particle Detectors

9360330 Korzhik W.Peter Trower Inc. proposes to develop nuclear/particle detectors using new fast heavy inorganic scintillators provided to our specifications by our Belorussian collaborators. These materials are of tow classes: (1) bright cerium-activated crystals - YAP, GAO, and GSO - which could displace thallium doped sodium and cesium iodide in certain applications. Our current YAP crystals (up to 50 x 50 x 10 mm3) have measured efficiencies, resolutions, brightness, and mechanical properties comparable to, or better than, those of sodium iodide but are 10 times faster. (2) dense undoped lead tungstenate crystals which offer an alternative to bismuth germanate. Relative to BGO, our current PWO crystals ( up to 22 x 22 x 180 mm3) are 12% denser, 10 times faster, and have 10 times better energy resolution but are only 10% as bright.